Washington Middle School Engineering Program

The middle school years are critical in determining a student's success and continued participation in mathematics. This proposal involves the expansion of MESA (Mathematics, Engineering, Science Achievement) model to the junior high/middle school population in the State of Washington. The project will focus on updating and revitalizing middle school mathematics curriculum, the goal being to increase minority student enrollment in algebra in the ninth grade. The MESA model also recognizes the need for teacher support and provides teacher seminars on a regular basis. Additionally, the expansion of the statewide Pre- College Center at the University of Washington will include the coordination of a statewide program at the junior high/middle school level. The MESA model is based on a partnership between industry and educators--a cooperative effort involving scientists on loan from industry, educators at the university level and educators at the secondary school levels working together to develop curricula that will stimulate student interest and achievement in mathematics and science. The staff for the project is well qualified with experience in the MESA program and in curriculum development and teacher training. The proposal addresses a clear need for improving minority mathematics education in middle/junior high schools and promises to have an impact throughout the nation for all students by serving as a model academic program. The project goals are consistent with the Instructional Materials guidelines. Therefore, an award is recommended.